Collaborative Research: Engineering Pathways Study: The College-Career Transition Informing Educational Practice

This project is a two-year engineering pathways study that is extending research findings from the NSF funded Center for the Advancement of Engineering Education's (CAEE's) Academic Pathways Study (APS). The APS conducted a series of longitudinal and cross-sectional studies of undergraduate engineering students' learning experiences and their transition to the workplace. In this project, the experiences of early career professionals (ECPs) are being studied in order to better understand what educational institutions and employers can do to facilitate the transition from engineering student to practicing engineering professional. More specifically, the project is conducting a mixed-method study of two research questions: (1) What factors or combinations of factors facilitate the transition of ECPs into a professional culture, and their conceptions of and preparation for their specific professional careers? (2) How, and to what extent do the factors that influence the professional development of ECPs contribute to their future careers? The proposed research is grounded in social cognitive career theory that has been shown to be a useful framework for exploring engineering career persistence. The project includes a rigorous evaluation plan coordinated by an independent evaluator to monitor the progress of the project and to study evaluation research questions about the integration of the APS results and the impact of collaboration.